Roads Taken: A Retrospective Study of Program Strategies and Long-term Impacts of Intensive, Multi-year, STEM Youth Programs

As part of its overall strategy to enhance learning in informal environments, the Advancing Informal STEM Learning (AISL) program seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments. This includes providing multiple pathways for broadening access to and engagement in STEM learning experiences, advancing innovative research on and assessment of STEM learning in informal environments, and developing understandings of deeper learning by participants. This Research in Service to Practice project will bring together representatives from six long-standing youth programs, experts in the field of out-of-school-time youth programming, and education researchers to collaboratively explore the long-term (15-25 years) impact of STEM-focused, intensive (100+ hours/year), multi-year programming. The six partnering programs have maintained records with a combined total of over 3000 alums who participated between 1995 and 2005. This four-year research project uses an explanatory, sequential, mixed-method design to carry out four steps: (1) identify and describe the impact on the lives of program alums who are now ages 30 to 45; (2) identify causal pathways from program strategies to long-term outcomes; (3) develop an understanding of these pathways from the perspective of the people who experienced them; and (4) disseminate this knowledge broadly to those associated with STEM-focused programming. Research questions include: How did these programs affect youth's lives as they progressed toward and into adulthood? What program strategies and what participant attributes contributed most to the staying power of these effects? What life events and social structures supported and inhibited participant outcomes? This project describes the effects, identifies the causal pathways, and produces materials that programs can use for both strategic planning and generating support resources. Additionally, this project provides research methodology for organizations that want to conduct their own retrospective research and lays a foundation for a more comprehensive study that includes programs without historical documentation. The project aligns with NSF's Big Idea "NSF INCLUDES: Transforming education and career pathways to help broaden participation in science and engineering" by providing essential information about the long-term effect of interventions on educational and career pathways in STEM.

The project's approach involves three phases: (1) research preparation, (2) causal structural modeling of survey data from approximately 2,000 respondents, and (3) rich qualitative follow-up. Human ecological and self-determination theories inform data collection and analyses at every project phase. In the preparation phase, program staff complete program profiles from an historic perspective by identifying program strategies that may have included, for example, scientific research, robotics development, teaching science in informal settings, and working in scientific research labs. In the quantitative phase, the project will recruit alums who attended one of the 6 youth programs between 1995 and 2005 to submit a current resume and complete an online questionnaire, based on the following scaled variables: retrospective recall of basic psychological need satisfaction and frustration in relation to perceived program strategies; STEM identity (at three time periods: pre-program; post-program; and current); current well-being; career influences; and career barriers. The questionnaire also includes open-ended questions about life events related to the following categories: family and friends, school and work, and living conditions. Analysis of the questionnaire will lead to development of a causal structural model. In the qualitative phase, data will be collected from a purposefully selected sample of 30 alums based on findings from the quantitative phase. Methods include interviews, photo journals, and STEM pathways maps. Analysis of interviews, resumes, and photo journals take place within the structure of basic psychological need satisfaction and motivational quality across ecological systems over time. Qualitative analysis uses the constant comparative method, and findings are used to update and refine the final causal structural model and inform overall findings, conclusions, and recommendations of the project.

Since the 1990s, out-of-school time programs have engaged youth from underserved communities in STEM learning and in building interest in STEM careers, yet these programs often based on untested assumptions that participation has lasting effects on education, career, and life choices related to STEM. This Research in Service to Practice project has the potential to 1) guide practitioners in program improvement and improved program outcomes; 2) provide insight into achieving program goals, such as equity, increased well-being of participants, an informed citizenry, and a diversified STEM workforce; and 3) inform multi-stakeholder decision-making with respect to this type of programming. This research also builds a foundation of research data collection and analysis methods to guide and support future research on long term-impacts and youth STEM programming. Dissemination strategies include a website, webinars, video, infographics, conference presentations, and written reports to reach stakeholders including practitioners, researchers, administrators, and funders.